Inservice Teacher Training in Environmental Education

This is a proposal for "Inservice Teacher Training in Environmental Education." The primary goals of this 12-month project are (1) to equip 600, mostly under-represented, K-12 educators to teach environmental education (EE) in all areas of the school curriculum, and (b) to increase to 25 the number of teachers enrolled in the College of Natural Resources extended Master's degree in EE, and make it available to teachers across the state of Wisconsin. The unique model of in-service teacher training developed in this project will be implemented as a pilot program. The courses will be instructed statewide by EE educators who include teachers, district coordinators, and state education specialists. This one-year project starts August 1, 1991, and provides cost sharing of 23% of the amount requested from NSF.